Active-Site Structures of ATP-Utilizing Enzymes

Understanding the catalytic activity of ATP-utilizing enzymes on a molecular basis requires knowledge of the structures of the reactants and products bound at he active sites of these enzymes. Dr. Rao's goal is to establish the active-site structures of three classes of enzymes, phosphory1 transfer, nucleotidy1 transfer and pyrophosphory1 transfer by using NMR spectroscopy which is one of the few techniques available for structural investigations in liquids. This is an excellent, well-crafted proposal by a very creative scientist. Dr. Rao has made impressive contributions to cleaning up the interpretation of metal-ion induced relaxation of substrate molecules in the active site of ATP-utilizing enzymes. This project represents significant and important extensions of the ongoing research.